NSF-BSF: Early visual experience and the interplay between plasticity and stability in sensory learning

Human cognition and artificial intelligence face the same fundamental challenge: balancing plasticity (the ability to adapt to novel situations) and stability (the preservation of existing capabilities). Solving this challenge is essential for intelligent systems to learn continuously without forgetting. This project investigates how biological and artificial systems balance plasticity with long-term stability in the domain of sensory learning, which is a core foundation of cognition. The resulting knowledge advances basic understanding of human learning, while informing the design of more human-like AI systems. The identified principles hold potential to improve the ability to predict how humans cope with changing sensory demands, including those arising from aging or injury. The outcomes of this project are highly relevant to developers of interactive technologies as these technologies typically require sensory learning for optimal use. The project provides interdisciplinary training in cognitive, developmental, and computational research for students and early-career researchers, thereby supporting workforce development.

To investigate how plasticity and stability interact to enable successful sensory learning, the researchers contrast impaired sensory learning in humans whose vision was restored after being blind in early life with intact sensory learning in typically developed adolescents and adults. This project combines behavioral experimentation and computational modeling techniques to test how altered visual experience in early life affects the interplay of plasticity and stability in visual and haptic sensory systems. Additionally, different types of sensory learning, ranging from short-term adaptation within minutes to natural learning over years, are implemented in artificial neural networks. Systematic manipulation of the artificial neural networks enables the researchers to identify the computational mechanisms underlying successful and impaired sensory learning in humans and machines.